Model Systems in Statistical Mechanics and Quantum Field Theory

0073058
McCoy
This grant is supported by the Divisions of Materials Research, Physics and Mathematical Sciences. The focus of the grant is the exact study of statistical mechanics of strongly interacting many-body systems and their connection with pure mathematics and condensed matter physics. The strongly interacting systems of greatest interest are the XXZ spin-1/2 chain, lattice models for generalized exclusion statistics and integrable perturbations, and Ising and dimer models particularly on higher genus lattices.
%%%
This grant is supported by the Divisions of Materials Research, Physics and Mathematical Sciences. The focus of the grant is the exact study of statistical mechanics of strongly interacting many-body systems and their connection with pure mathematics and condensed matter physics.
***